Steroid Hormones and Behavior

Dr. Wallen has developed a model that integrates the central effects of hormones with peripheral mechanisms affecting their metabolic fate that has direct relevance to the development of human steroid replacement therapies. From work with humans and primates, it is clear that removal of female ovaries or damaging their ability to function drastically reduces sexual interest and satisfaction. A critical problem is which steroid hormone or combination of hormones can mimic the action of the ovaries and adrenals on these behavior. This is further complicated since blood of female rhesus and human females contains special proteins that can tightly bind estrogens and androgens. When hormones are attached to these proteins, called sex hormone binding globulins or SHBG, they cannot affect the nervous system and are inactive. When they become unattached from the protein they are once again active. Although both steroid hormones bind to SHBG, androgens bind more tightly than estrogens. Dr. Wallen is examining whether the binding of androgens to these special blood proteins frees estrogens to influence behavior. His work will clearly define the role of both estrogens and androgens. Furthermore, finding that SHBG strongly influences the behavioral effectiveness of ovarian and adrenal steroids will markedly change current views of hormone action. The outcome of his innovative work will provide new information on how steroid hormones interact to modulate their individual dynamics and effectiveness and could lead to the development of better hormonal treatments for humans with endocrine disorders.